3D Modeling of Speech Production

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Kathleen Cummings, will be working with Professor Mark Clements on digital signal processing related to human speech. The goal of the research is to develop a three dimensional model of speech production using finite difference modeling to simulate acoustic wave propagation in the vocal tract. The model is complex enough to require the use of high performance computing resources. Initially a two dimensional model will be developed and elaborated. In the second year a three dimensional will be developed and tested. Techniques from finite difference methods from electromagnetics and computational fluid dynamics will be utilized.